Core Support of the Water Science and Technology Board

0140222 Parker The Water Science and Technology Board (WSTB) of the National Academies provides a focal point for studies related to water resources and the role of environmental engineering in this context. The Board's objective is to provide information to improve the scientific and technological basis for resolving important questions and issues relating to the management of water resources. A major function of the WSTB is to conduct studies and sponsor workshops and conferences that can be utilized for program planning purposes. In this way, the WSTB provides a means for coordination of research plans with other Federal Agencies, including the Federal Emergency Management Agency, the U. S. Geological Survey, the U. S. Environmental Protection Agency, the U. S. Department of Energy, and the U. S. Army Corps of Engineers. ***